Demonstration of an Internet-Based Research Collaboration Framework

9708561 Mish The goal of this workshop is to develop a format for an Internet-based environment to foster productive collaborations among geographically-distributed teams of researchers, especially among researchers in earthquake engineering applications, focusing on applications in siting and geotechnical systems. It will be held during the summer of 1997 on the campus of the California State University at Chico. The workshop consists of three components: Phase 1 consists of the preparation for the actual workshop, utilizing the capabilities of the Internet for communications. As such, it is a "virtual workshop" intended to demonstrate the key characteristics of the desired electronic collaborative framework. Key technologies will be made available in a simplified form appropriate for demonstration purposes. Each demonstration will be accompanied by collaborative correspondence among members of the target audience, so that the full impact of the technology can be detailed and clarified. In phase 2, the "physical workshop", the results from Phase 1 will be discussed to provide a more detailed assessment of the requisite computer technology needed. The workshop will summarize and extend an understanding of the technologies demonstrated in Phase 1, in order to provide necessary detail for the needs of the earthquake engineering community. Phase 3, the documentation phase, will prepare and publish the proceedings of the workshop. The proceedings will include a formal specification for the implementation of the Internet collaborative framework. The lessons learned from the workshop will be encapsulated in a functional needs document. This functional assessment will be circulated for approval by the earthquake engineering community, following which it will be translated into a technical specification to serve as a blueprint for future implementation of the virtual collaborative environment. The dissemination and implementation of the workshop proceedings will yield an important demonstration of new technologies for fostering productive collaborations among geographically distributed teams of researchers. In addition to providing obvious standards of practice for engineers in the earthquake engineering community (for such basic topics as report preparation and dissemination via electronic means), it will deliver concrete demonstrations of modern Internet technologies, along with the type of "hands-on" documentation that will be required to permit others to implement the results developed via the "virtual workshop" and the actual workshop.